RIA: A Study of Adaptive Generalized Order Statistic Filters

The idea of median filters can be generalized so as to lead to nonlinear filters that include as a special case order statistic filters (Ll- estimators). Such filters can be very efficient in processing signals of nongaussian nature and can be constrained to be robust against the presence of occasional impulsive disturbances. The coefficients of the filter can be computed adaptively using extension of LMS and RLS algorithm. This project is involved in deepening the understanding of the properties of the generalized filters, particularly when used in an adaptive signal processing framework. Preliminary results show very promising performance. The impact of the study can be considerable in the signal processing practice since all linear digital filters (recursive and nonrecursive) could be upgraded with small computational increase to be also order statistic filters. Robustness and improved performance would easily be gained in presence of nongaussian signals.